NSF National Robotics Initiative (NRI) 2018 Principal Investigators Meeting

This award will support the organization of the annual Principal Investigators (PI) meeting for the National Robotics Initiative (NRI), which was launched in 2011. The PI meeting will bring together the community of active NRI participants to provide cross-project coordination of intellectual challenges and best practices in education, technology transfer and general outreach. This activity will also establish a repository illustrating the research ideas explored and milestones achieved by the NRI projects.

The meeting is planned for two days in October 2018 in the vicinity of Washington DC. The format will include presentations by the attending PIs of projects in their final year, a poster session with all other projects, keynote speeches, and panel discussions.